Wavelets, Frames and Group Representations

Proposal Number: DMS-0200756
PI: Eric Weber

ABSTRACT

In the past twenty years, wavelet theory has developed
into a fundamental area of mathematics and applied science.
Intimately related are frame theory and sampling theory, all
with a connection to harmonic analysis. The proposed
research will investigate group representations as a
unifying theme since they appear in the settings of wavelet,
frame, and sampling theory. The research of Weber will use
existing tools from functional and harmonic analysis, while
also developing tools related to group cocycles and maximal
abelian self adjoint algebras as models of these objects.

The proposed research is theoretical in nature, though much
of it is motivated by problems in applied mathematics. The
goal of the research of Weber is to establish a solid
mathematical foundation of wavelet and frame theory. However,
the research will potentially impact problems in applied
mathematics and signal processing, such as digital signal
multiplexing, redundant communications and secure
communications.